Research Experience for Undergraduates-Microbiology

The REU Site Program at the University of Wisconsin is administered by the Department of Bacteriology and conducted for ten weeks during summers 2006-2008. The goal of the program is to provide an intensive, stimulating, and rewarding research experience in microbiology, molecular biology and related fields. The ultimate goal of the program is to attract talented undergraduates to careers in science. The emphasis is on students who will broaden the pool of under-represented minorities in science careers and those with limited opportunities for research at their home institutions. Participants will spend the majority of their time conducting independent research on a project in well-established and well-funded laboratories where state-of-the-art equipment and scientific approaches are utilized. In addition to research, a variety of educational, graduate school preparation and social activities are planned so students get a rich, well-rounded and enjoyable summer experience. Students will publish a final report of their results, present their findings at a Special Symposium, and be encouraged to present their work at a regional, or even national scientific meeting. Students are provided a stipend, housing and meals, and travel to and from the lab. More information is available at http://www.bact.wisc.edu/REU/index.html, or by contacting Gail Tanner ([email]), (608) 263-0234, or Robin Kurtz at (608) 263-0234.